Interagency Radiation Research Transfer

These funds provide technical and administrative support of activities of the Committee on Interagency Radiation Research and Policy Coordination (CIRRPC), a subcommittee of the Committee on Life Sciences and Health, which is part of the Federal Coordinating Council for Science, Engineering and Technology (FCCSET). Sources of radiation (ionizing and nonionizing) affect all Americans, play a significant role in many scientific and technological segments of American society, and are ubiquitous in our natural environment. The Director of the Office and Science and Technology Policy (OSTP), who is also the Chairman for FCCSET signed the Charter creating the CIRRPC in 1984. CIRRPC complements the radiation research and policy activities of the 18 federal member agencies. Each agency contributes financial support to the operations of CIRRPC. %%% Current activities of CIRRPC include review of the literature on the possible health risks to humans from exposure to low-frequency electric and magnetic fields and coordination of radiation risk assessments and the review of radiation protection standards.